Subsurface Contamination by DNAPLs: Transport Modeling and Site Characterization

9502546 Pantazidou The presence of Dense Nonaqueous Phase Liquids (DNAPLs) in the subsurface may control the ultimate success or failure of remediation at a hazardous waste site. Our ability to evaluate DNAPL risks us limited by both inadequate field characterization techniques and by our sketchy understanding of DNAPL migration potential. In this study, centrifuge modeling will be used to quantify the parameters that determine the mobility of DNAPLs, with emphasis on low-permeability soils. Numerical modeling will be used to provide further insight into the physics of DNAPL transport. Development of noninvasive characterization methods will be pursued to assist in estimating the potential for DNAPL occurrence at contaminated sites. In the educational plan, an environmental geotechnics module, which can be inserted in any traditional introductory undergraduate soil mechanics course, is under preparation. On the graduate level, a new course will be designed with the objective of introducing students to geoenvironmental applications, which are presented in the framework of site characterization and remediation. There will be a concentrated effort in both aspects to narrow the gap between educational experiences and industrial projects through selection of lecture topics and interactions with current and prospective students outside the classroom. ***